An Urban Environmental Program for Middle and Junior High School Teachers

Hunter College of the City University of New York jointly with the Research Foundation of the City University of New York will develop an Urban Environmental Program for Middle and junior High School Teachers with energy and environmental control as the main theme. The program includes workshops, lectures, demonstrations, field trips and a camping experience where the 70 participates will have the opportunity to compare and contrast urban and rural environments. The objectives for the program include developing program for teachers based on staff prepared materials, computer programs, and material prepared by NSF sponsored curricula projects and other national programs; enabling teachers to master the requisite subject matter and to acquire techniques for teaching urban environmental studies; assisting teachers to develop activities for the classroom and to implement them; providing problem solving experiences in science and improving the practice of techniques in teaching problem solving. The staff will develop the program in the fall of 1987, test it during the spring semester for a small group of participants, and use the information gained during an intensive three week summer session for which participants will receive four graduate credits. Five participants will be Visiting Adjunct Lecturers. Approximately one-half of the project activities will take place at the Fireboat House Environmental Center, a research center for the study of energy conservation and analysis of environmental problems. One-half of the activities will be held in the science education laboratory at Hunter College. Hunter College CUNY has been designated as a minority institution, with more than one-half of its student body being black or hispanic. It has a deep commitment to teacher education and close rapport with the New York City public schools built on numerous joint projects. There is a unique cooperation between the education division and the division of science.